Acquisition and Upgrade of Instruments for Research on Water-rock Interaction and Sediment Transport

EAR-0447129
Anderson

This grant provides partial support for an dual system ion chromatograph (IC) equipped with automated sampling system for determination of major anions and cations in aqueous solution. The IC will be used for investigations of surficial hydrochemcial processes in support of paleoclimate, paleoceanographic and alpine research. The IC will facilitate ongoing and future research and research training by University of Colorado faculty, research scientists and their students involved with the Institute for Arctic and Alpine Research (INSTAAR) which draws on faculty and students across multiple UC departments.
***